DISSERTATION RESEARCH: Female Fitness Consequences of Polyandry in an Orb-Web Spider, Argiope Trifasciata

Rubenstein-Sundaresan Doctoral Dissertation Improvement Grant

Individual Behavior and Female Associations in Fission-Fusion Equid
Societies

Animal societies result from the sum of all relationships that develop among
individuals within populations. Many studies have demonstrated how
environmental circumstances, both ecological and social, influence the benefits
and costs associated with the various behavioral options available to
individuals and thus how they these factors structure animal societies. Yet in
species where potential relationships are many and those that form are fluid,
the link between environmental features and the relationships that develop are
poorly understood. This project explores how ecological features, such as the
distribution of food, water and predator-free sites, together with the
demographic and social features, such as population density and sex ratio,
shape individual relationships in the Grevy's zebra and wild ass, two
evolutionarily closely related species exhibiting 'fissioning' and 'fusing'
social systems. We have developed a novel model that predicts rules for the
formation and breakdown of relationships in such 'open-membership' societies
and forecasts the impact these rules will have on population-wide social
patterns and processes. Data will be gathered on two endangered equid species,
Grevy's zebra and Onagers, from four sites. The four sites provide natural
variation in the key environmental and social forces and will serve as an ideal
system for testing the predictions of our model. The study will also provide
useful information needed to improve conservation strategies for these species
by educating students and the local populace and by demonstrating to natural
resource managers how fundamental behavioral research can assist in designing
effective management plans.